SGER: Making a New Collection of Indigenous Resources About Arctic Climate Change Available to the Public for Research and Education

ABSTRACT
ARC #0503460

This SGER proposal is to make Indigenous knowledge about Arctic climate change widely available for research and education. The project is to develop a Digital Library of Indigenous Science (DLISR) using materials collected by Snowchange, a non-profit organization in Finland. The Snowchange data consists of audio, video, photographs, indigenous artwork, diary text, and research notes - all on climate change observations from Arctic communities. This project will develop a database in a standardized format utilizing best practices, digitize the primary data, produce the metadata that can be utilized by researchers, and develop a format that will be accessible to indigenous and education communities. This information will be made available to the science community and to indigenous communities in a useable and accessible format. In addition, the project is in close cooperation with local native organizations and includes widening the participation of indigenous people in the digital science library effort, as well as providing for the dissemination of materials to indigenous communities and schools.